Ordered Block Copolymer Thin Films Studied by Guided-Wave Depolarized Light Scattering

TECHNICAL EXPLANATION
This proposal seeks funds to continue the development of a novel analytical technique for
characterizing the organization of anisotropic nanostructures (e.g. lamellae and cylinders)
in optically transparent block copolymer thin films. Quantitative measurement of
organization is critical for many proposed applications of nanotechnology, ranging from
fuel cells to optoelectronic devices. GWDLS allows the low-cost, non-destructive, realtime
measurement of order formation and defect density in optically transparent thin
films. Among methods for thin-film characterization, GWDLS is unique in that it
provides an average measure of defect density over macroscopic length scales (~1 cm) in
a film. Position-space methods for studying defect structure, such as atomic force
microscopy (AFM) and scanning electron microscopy (SEM), can measure local defect
structure, but are impractical for obtaining statistical averages over macroscopic regions.
The GWDLS technique involves the coupling of a laser beam into a guided mode of a
planar optical waveguide consisting of a block copolymer film deposited on a low
refractive index substrate. Light coupled into a guided mode propagates through the film
by total internal reflection. As the light interacts with anisotropic grains in the film, it
generates depolarized scattered light which propagates in guided modes with orthogonal
polarization. This scattered light is coupled out of the film and detected. In the proposed
work, we will (1) Modify the current GWDLS apparatus to study the propagation of
polarized light in a symmetric silica-polymer-silica sample environment using a grating
coupler. (2) Develop a theoretical model for quantifying the relationship between the
GWDLS signal and statistical properties of randomly oriented and partially oriented
grains in thin films. (3) Use GWDLS to determine the order-disorder transition
temperature of block copolymer thin films with both lamellar and cylindrical order. (4)
Measure the kinetics of order formation in thin films after quenching from the disordered
to the ordered state. (5) Obtain a quantitative measure of the average grain size by
comparing the measured signal with theoretical predictions. All of the polymers and
substrates required for the project will be prepared by the students. Complete
characterization of the films using complementary techniques such as AFM, SEM, and
SIMS will be carried out.
NON-TECHNICAL EXPLANATION
Balsara will serve as a faculty instructor in the Math and Science Summer Academy
which brings approximately 60 students from local high schools to the University campus
to participate in a six-week enrichment program in math and science. Typically half of
the participants are African American, one quarter Chicano, and the remaining quarter
Asian, Caucasian, Filipino and Latino. Garetz will continue his 7-year involvement with
Polytechnic University's David Packard Center for Technology and Educational
Alliances. His activities include conducting workshops at the New York City
Science/Technology Forum where 500 students from New York City public schools
come to Poly for a full-day program where they meet outstanding engineers and
technologists representing centers of higher education, hospitals, and corporations. The
graduate students working on this project will receive multidisciplinary scientific training
encompassing synthesis and characterization of polymers, optics, lithography, and nonequilibrium
thermodynamics. Their background in characterization and manipulating
nanostructured thin films is relevant for current and future technologies.